Partial support for the ACM Fourth Conference on Computers, Freedom, and Privacy

9321390 Trubow Support for participants, travel, organization, and proceedings is provided for an intensive multidisciplinary survey conference on the implications for privacy and freedom of the interactionof computers, computer data banks, and computer networks. Topics covered include electronic mail ownership, governmental electronic benefits transfer programs, privacy and security of computerized personal information, appropriate use of electronic third party direct marketing information, the many faces of privacy, electronic democracy, electronic voting, censorship and free speech in networks, digital telephony and cryptographic policy, sexual politics on the network, medical information privacy, international network privacy, and case studies of advanced databank systems.